Oceanography Magazine highlighting Dr. John Knauss' contributions

Partial support is provided to produce and distribute an issue of Oceanography magazine highlighting Dr. John Knauss' contributions to the Marine Sciences on the occasion of his 75th birthday. To mark this milestone, The Oceanography Society will publish a special issue of Oceanography magazine to honor his many contributions to the marine sciences. Topics to be featured include: a biography, legacy of Stratton Commission emphasizing Sea Grant and how this impacted federal activities, UNOLS and the academic fleet, Physical Oceanography at the Equator, Law of the Sea, Advances in Instrumentation, and marine education. Oceanography magazine is in its fourteenth year of publication. It is published four times per year, with issues going to the worldwide membership as well as to libraries of oceanographic institutions.